Voice System Administration and Cable Plant Management

Support for the NSF voice and cabling system, including key system administration, programming, cable installation, wiring, and trouble shooting.